Algebraic and Geometric Topology

9803713
Davis
The principal investigators, James F. Davis and Kent E. Orr, are
pursuing several problems in low and high dimensional geometric
topology and exploring connections between combinatorics and
topology. The problems in geometric topology include: cases of the
Borel/Novikov conjecture and applications of the conjecture to
manifolds with infinite fundamental group; the classical topological
knot slice problem, including geometrically interpreting old and newly
constructed knot slicing obstructions via Whitney tower constructions;
the problem of slicing knots in even dimensions and the underlying
homotopy obstructions; and better understanding the fundamental
problem of classifying topological four-manifolds within a homology
type. This project also is constructing the foundations of the theory
of oriented matroid bundles and their characteristic classes. This
requires deep interactions between two fields, topology and
combinatorics and will be a step towards the understanding of a new
category of manifolds, the combinatorial differential manifolds of
Gelfand-MacPherson.
All problems in geometric topology have their roots in the
understanding of manifolds. An n-dimensional manifold is a set of
points which is locally modeled on an n-dimensional linear space. For
instance, a surface is a locally 2-dimensional linear space.
Space-time is locally 4-dimensional, but its global properties are
harder to grasp. The principal problem of geometric topology is the
classification of manifolds. Two manifolds are the same if there is a
continuous function with a continuous inverse between the manifolds.
This formalizes the notion of rubber sheet topology often discussed in
popular science magazines. Another natural aspect of manifold theory
is the question of how manifolds can sit within other manifolds, i.e.,
knot theory. One pathway to understanding manifolds is through the
fundamental group and homology theory, which provides a transition from
geometry to algebra. Another pathway is to approximate geometry by
finite structures, which provides a transition from geometry to
combinatorics. The interaction of these fields of mathematics reveals
techniques and perspectives that would otherwise be invisible.
***